Advanced Research Workshop on Future Trends in Microelectronics: the Nano Millennium, Ile de Bendor, France on June 24-29, 2001

The proposed ARW is to provide a forum for free-spirited exchange and debate of views,
visions, and ideas. The format includes both prepared invited presentations and ad hoc
contributions with uninhibited exchange of views and rebuttals. Some of the key luminaries
will come to share their opinions and to lead the discussions on where the technologies
are going and/or should be going. Balanced representations of advocacy and opposition
will be intentionally sought.

Each day will start with presentations given by key speakers on subjects in one or two
chosen themes. It is then followed by debates and invited talks by other participants.
All oral presentations (in morning sessions) are to focus on the presenter's views and
projections of future directions, assessments or critiques of important new
ideas/approaches, and NOT on their own achievements. The presenters are asked to be
provocative and/or inspiring.
Latest advances made and results obtained by the participants will be presented in the
afternoon sessions in the form of posters and group/individual discussions.

The day will be concluded by an evening panels session that attempts to further the
debates on selected controversial issues connected to the theme of the day. Each session
will be chaired by one forceful character that will invite 2-3 attendees of his/her choice
to lead with a position statement, all other attendees being the panelists. The debate
will be forcefully moderated and irrelevant digressions will be cut off without mercy.
Moderators will be also assigned a hopeless task to forge a consensus on critical issues.

For these considerations, a format has been choosen that is less rigid than normal workshops to
allow and encourage uninhibited exchanges and sometimes confrontation of different views.
A design a central theme will be designed together with the speakers for each day.